Spontaneous Reactions at Protein Aspartyl and Asparaginyl Residues

9305405 Clarke Precise three-dimensional structures allow proteins to carry out their architectural, catalytic, and signalling roles. However, a number of spontaneous processes occur under physiological conditions, including oxidation, glycation, isomerization, racemization, deamidation, and cleavage reactions, that lead to changes in structure that can alter protein function. Asparaginyl and aspartyl residues represent two of the major sites for such reactions, where intramolecular reactions can result in the generation of L- and D-isoaspartyl and D-aspartyl derivatives, as well as peptide bond cleavage. These studies are aimed at furthering our understanding of the factors that determine the susceptibility of specific aspartyl and asparaginyl residues in specific proteins to these non-enzymatic reactions. %%% Spontaneous reactions which occur after formation of proteins can have significant effects on function and biological half-life. The studies proposed here investigate the mechanism of several spontaneous processes which alter the half-life of hemoglobin. ***